CSUMS: Computational Mathematics with an Emphasis on Computer Vision and Imaging Science (CMECVIS)

Shah
DMS-0803059

The investigator and his colleagues at the Department of
Mathematics of the University of Central Florida introduce a
year-long computational mathematics research and training
program. Using exciting applications of mathematics in images
and videos as motivating examples, this CSUMS program provides
participants with a solid background in both mathematical theory
and problem-solving techniques to pursue careers and graduate
study in fields that require integrated strengths in computation
and the mathematical sciences. The program starts in the spring
semester with classes that prepare students in numerical methods,
mathematical modeling, and computer vision and imaging science.
Then, in an intensive summer component, the students immerse
themselves in a research project. In the fall semester they
continue to conduct research and take additional classes in
advanced computer vision and imaging science, and advanced
mathematical modeling. In the follow-up spring semester, the
students submit their research for publication, finish an
undergraduate honors thesis, and get training in graduate career
advancement issues. In addition, participants attend
professional conferences, which give them a chance to present
their research and to meet known researchers in the field, who
may serve as their role models. To broaden the students'
perspective, there are field trips to technology companies in
central Florida area such as Lockheed-Martin, Harris, and Boeing.
Finally in order to promote interaction amongst the students, a
seminar course is installed throughout the program and several
social events are included such as dinners with distinguished
speakers visiting the campus.

A cohort of 10 participants is selected each year among math
majors and minors at UCF. The key elements of the program
include: to have a full year training in carefully designed
course work so that the participants can master the mathematical
and computational fundamentals, to engage each participant in a
meaningful research project integrated into the year-long
program, and to develop the participants' skills in communicating
scientific ideas in writing and oral presentations through
writing journal papers for publication, giving routine seminar
presentations, and presenting at the professional meetings. The
program represents a team effort of faculty members from
mathematics, computer science, education and industry. It leads
to the development of a year-long research-oriented curriculum
for computational mathematics. In particular, the participants
are trained in and exposed to the latest techniques and critical
issues in computational mathematics through both upgraded and
newly designed courses and real-life research projects in
computer vision and imaging science, which involve video
compression, image denoising, object detection, tracking,
activity and event recognition. This project contributes to
preparing a work force of diverse scientists in order to maintain
America's strategic position of command in science and
engineering. Participants are trained in computational
mathematics with an emphasis on computer vision and imaging
science, in particular they learn fundamentals of computation
with applications of consequence in areas such as national
defense and intelligence, homeland security, and biomedical and
life sciences. The outcome of this CSUMS model, its evaluation,
related research, articles, and curriculum materials, is
disseminated to other colleges and universities via a dedicated
web site.